US-Brazil Planning Visit: Rural Drinking Water Research in Amazonia Brazil

This international planning grant will support travel to Brazil by Dr. Andrew Elmore, Dr. Joel Burken, Dr. Julie Gallaway, and Dr. James Martin from the University of Missouri-Rolla to work with a team of Brazilians from the Pontificia Universidade Catolica do Rio de Janeiro (PUC-Rio) including Jose Araruna, and Roberto Carvalho. The goal of this planning visit is the development of multidisciplinary research and education program related to sustainable water supplies for rural households in Amazonia Brazil. The immediate outcome will be the development of proposals to fund the international water research associated with developing a strategy for implementing point of use (POU) drinking water treatment systems at the individual household and community levels in Brazilian Amazonia.

This grant has been co-funded with CBET/ENG